PAGES: Preparing and Graduating Engineering Scholars

Twenty nine academically talented, financially needy undergraduates and graduate students majoring in engineering are receiving scholarships of $3750 annually. An emphasis is being placed on the recruitment, retention and graduation of women and other groups that are underrepresented in engineering. The scholarships are replacing student loan packages and decreasing student indebtedness upon graduation. A combination of proven methods including tutoring, mentoring, and monitoring is being implemented and is enabling participants to achieve their best academic performance. Additionally, PAGES is offering networking opportunities, coaching, and workshops that are helping to prepare the scholars for a professional career in engineering.